Conference: Statistics Foundations of Artificial Intelligence (CSFAI)

In the era of big data, researchers and analysts have unprecedented access to extensive datasets, opening up new opportunities for scientific discovery and predictive modeling. These datasets, often collected from diverse sources, exhibit various forms of heterogeneity, including distribution, observation, and task heterogeneity. Effectively addressing these complexities is critical for maximizing their potential. This project tackles various data integration challenges in supervised learning by introducing a novel framework, Representation Retrieval (R2), that simultaneously addresses all three types of heterogeneity. The new framework combines advanced representation learning with sparse-induced machine learning algorithms to achieve its objectives. Additionally, the investigator develops a new integrative penalty designed to improve the integration and effectiveness of the learned representations. This project will lead to a new paradigm for extracting and integrating information from heterogeneous data sources and provide fundamental solutions and a rigorous framework to address challenges. This project will have broad applications across various fields, including medical and health sciences, social sciences, political science, education, finance, marketing, and artificial intelligence. The investigator will integrate education with research by developing a new course on data integration.

The new framework extracts a shared representation dictionary from multiple heterogeneous data sources, then selects source-specific retrievers and estimates source-specific learners. The representation dictionary, accessible to all data sources, contains a set of representers that map covariates to a low-dimensional latent space. Each data source employs its own retrievers to select informative representers that project their covariates into an appropriate latent space. Using these retrieved representations, source-specific learners can then be applied to predict responses. The project's aim is to make significant contributions to the field of data integration through the following advancements: (1) Formulating a General Data Integration Framework: Define a supervised learning problem that incorporates three types of heterogeneity. This formulation generalizes several well-studied problem setups as special cases. (2) Introducing the Representation Retrieval (R2) Framework: Develop a comprehensive framework to address all three types of heterogeneity and overcome common limitations in existing methods. (3) Addressing Distribution Heterogeneity: Leverage a “partially-sharing structure" to model distribution heterogeneity effectively, solve optimization problems with sparsity-induced penalties, and introduce a novel “Selective Integration Penalty" to encourage representers shared across multiple data sources. (4) Handling Observation Heterogeneity: Propose a non-imputation-based approach to manage observation heterogeneity, providing a robust alternative to conventional methods. Conference website: https://statfoundations-ai.github.io